Analysis and Design of a Buoy Mounted Wind Profiler for Remote Measurement of Ocean Winds

The objective of this research is to investigate various options to deploy a suitable UHF/VHF radar at sea using an anchored buoy. The design includes the preferred operating frequency, antenna size, buoy size, power consumption, and various options to stabilize or exploit the motion of the buoy.